Structure of the neutron and few-body nuclear systems with electron scattering

0072384
Petratos
This is a proposal to investigate the internal structure and
dynamics of the neutron and of the lightest nuclei in nature,
deuterium and helium. The investigation will be based on
experimental studies of high energy electrons scattering off
hydrogen and helium isotopes. The proposed research will use the
electron beam of the Jefferson Lab accelerator to bombard cryogenic
deuterium and helium targets and to study the nuclear reaction
products with superconducting magnetic spectrometers. The results
are expected to provide fundamental information on the distributions
of the three quark constituents of the neutron, the wave functions
of deuterium and helium and the interaction of the proton and
neutron constituents of the two light nuclei.